Comparative Physiology of Pituitary Hormones: Regulation of Secretion

The goal of this proposal is to obtain basic information on the mechanisms by which the synthesis and secretion of pituitary hormones are regulated in ectothermal vertebrates The initial focus will be on hypothalamic factors that control thyrotropin (TSH) and gonadotropin (FSH and LDH secretion and on peripheral factors that modulate pituitary sensitivity to these factors in reptiles and amphibians. The young turtle will serve as a model reptilian system and the bullfrog will serve as an amphibian model, with limited comparisons with other orders. A. TSH Secretion: TSH regulation will focus on the role of the hypothalamic tripeptide, thyrotropin-releasing hormone (TRH), whose role in amphibians and rrptiles is poorly understood. We will also examine actions of potential stimulators and inhibitors from the brain and periphery, especially thyroid hormones, that may modulate pituitary responsiveness to TRH. Acute and chronic thermal effects on pituitary responsiveness will be examined in the context of exogeous control. Attempts will be made to analyze pituitary growth hormone and prolactin responses concomitantly in all studies, and in vitro thyroidal TSH sensitivity will be measured in parallel. B. Gonadotropin Secretion: Studies on the regulation of gonadotropin will have two foci:1) The role of steroids in modulating pituitary sensitivity to gonadotropin releasing hormone will be studied in relation to the ontogeny and maintenance of sexual dimorphism in responsiveness to this hyhpothalamic peptide. 2) Attention will be directed for the first time to the role of nonsteroidal gonadal secretions (based on mammalian inhibin) in differentially modulating pituitary FSH and LH secretion. These studies should provide a foundation for understanding the evolution of hypothalamo-pituitary regulation and its integration with peripheral endocrine targets in ectothermal tetrapods.